Oceanographic Instrumentation, R/V Blue Heron - 2001

0098107
Ricketts
This award to University of Minnesota Duluth provides instrumentation to significantly improve the Great Lakes research capabilities of the institution and the research vessel Blue Heron, a ship operated by the Large Lakes Observatory of UMD as part of the University-National Oceanographic Laboratory System research fleet. The optical plankton counter, water sampling bottles and zoological sampling nets supported here will significantly enhance capabilities for biological and environmental studies in Lake Superior, and the antennas for the GPS units will allow more precise vessel motion correction, important for a variety of instruments. These improvements will be of substantial advantage to scientists using Blue Heron in their research during 2001 and future years.
***